Dissertation Research: Cultural Context of Expression in a Brazilian Community

This dissertation research project will allow a cultural anthropology student to study the expression of emotions among women in a Brazilian village. The student will interview women, particularly healers and their patients, using a combination of methods including in-depth interviews, participant observation, and structured tests. The results will include a model of the healers' system for classifying emotionally-based disorders, and increased understanding of the theoretical relationship between gender, social structure, and emotions. This research is important because there are few comparative studies of the expression of emotion. The student's project will help us understand how expressions of emotion by individuals in local "face-to-face" communities in Brazil are influenced by social interaction and norms. Any cross-cultural interaction involves emotional expressions, and increased understanding of the cultural rules governing this expression will help facilitate cross-cultural communication.